Workshop on Application of Tree Automata in Rewriting, Logic and Programming in Frankfurt, Germany, October 20-24, 1997

This award provides travel for 10 U.S. computer scientists to attend a workshop on the applications of tree automata held in Dagstuhl, Germany. The purpose of the workshop is to bring together researchers from three different communities-automated deduction, term-rewriting, computer- aided verification and compiler construction who have been utilizing tree automata, in an attempt at cross fertilization of ideas among the disciplines and forging new research directions.